Geometry of Mirror Symmetry

Abstract

Award: DMS-0405859
Principal Investigator: Eric Zaslow

This project addresses geometric aspects of mirror symmetry. The
PI will study the geometry of the Strominger-Yau-Zaslow
conjecture by looking at the conjectural picture of a Calabi-Yau
threefold near the large complex structure limit, where the
special Lagrangian torus fibration collapses. The resulting
manifold is a real integer affine manifold with singularities.
The first project will produce a real Monge-Ampere metric on an
open ball outside a Y-shaped singular locus, then study its
monodromy. A knowledge of this region is essential to gaining a
global understanding of the Calabi-Yau, including the role of
disc instanton corrections. Related projects are to study the
geometry of flat or Ricci-flat torus fibrations in Ricci-flat
manifolds in general, and to study the counting problem of
special Lagrangian and other calibrated submanifolds by varying
the metric away from the Ricci flat one. The final project is
investigate integrable hierarchies underlying the topological
vertex.

The project studies the mathematics behind the physical
phenomenon of mirror symmetry. Mirror symmetry is when two
different physical theories give rise to the same predictions
about nature. Mathematically, there are deep connections behind
the equivalence, and this project looks at the geometry of the
equivalence. Understanding the geometry of mirror symmetry will
lead to a broader comprehension of the structure of mathematics,
and conceivably physics. For instance, mirror symmetry aids in
the calculation of topological field theories, which have been
shown to have computational relevance to the conventional gauge
theories that underly particle physics. At a more basic,
mathematical level, understanding the geometry of mirror symmetry
can lead to a concrete description of the special structures
conjectured by Calabi to exist in 1957 and proved to exist by Yau
in 1979. Still, we know very little about this important aspect
of geometry. The rich interplay of mathematics and physics has
much to teach us.